IEEE Workshop on FPGAs for Custom Computing Machines: Processors, Programming and Applications; April 5-7, 1993; Napa, California

Athanas Field programmable gate array (FPGA) devices represent a relatively new technology that provides a means of implementing hardware functionality which can be modified under software control. When integrated into a computing platform these devices can provide direct hardware execution for operations that have been conventionally evaluated using software. The purpose of this workshop is to assess the current state of FPGA computing and establish goals for further development of reconfigurable processing platforms.